Transmission Problems and Large Surfaces

Mosco
DMS-0807840

The investigator and his colleagues study mathematical
problems with large surfaces and small volumes that arise in
physics (e.g., highly fragmented electrical conductors, high
voltage electric discharges, electrolytic deposition,
diffusion-limited aggregation), chemistry (catalytic converters,
surface chemistry), biology (cell membranes, vascular systems),
engineering (hydraulic fracturing in oil wells, thin ramified
fibers, elastic thin bodies, towers and bridges in open space).
In all these problems a lower-dimensional physical body -- the
"surface" -- intrudes and interacts with a full dimensional
surrounding body -- the "volume." The volume is small, the
surface is large, possibly fractal and with infinite area. In
this project, the mathematics of fractal structures in space is
focused on two fundamental issues: 1) second order transmission
conditions for second order operators; 2) singular homogenization
with fractal terms. New tools of analysis are developed, like
Hoelder metrics and measure-valued Lagrangeans. Finite element
numerical approximations provide the quantitative and flexible
setting required by prospective applications such as those
mentioned above. The principal investigator and his colleagues
develop new mathematics aimed at meeting the challenges and
taking advantage of the new technologies of the time.

The mathematics developed in this project is motivated by,
and oriented to, the study of applied problems of unusual type,
occurring in the materials sciences and manufacturing,
nanotechnology, biotechnology, and the environmental sciences.
The unusual feature of these problems consists in the presence
and interaction, within the same system, of two physical
phenomena, one confined in a "small volume," the second unfolding
itself on a "large surface." Nanotechnology can produce very
fine fractal surfaces that can be assembled to form composite
materials with enhanced internal surface effects (catalytic
devices, absorbers, surface chemistry, radiators and similar).
Environment-driven fractal networks can support irrigation of
large surfaces with scarce fluid volume (as in vascular and
biological systems). Interlaced thin fibers and fractal thin
structures can tune wave propagation in space. Despite their
complexity, these applications hinge on an unusual volume vs.
surface relation of the kind mentioned before. The project
involves young researchers and students -- with attention to
underrepresented minorities -- who receive a broad, flexible
training that provides access to science and technology as well
to professional activities outside academic institutions.